Distributed Processing and Computer Control

This project provides students with training in real-time computer control using a hardware/software environment that supports concurrency and distributed processing. The programming training received by most computer science undergraduates does not lend itself to application to real-time control of complicated systems. Curricula are changing to meet the need for programmers who can function in a systems control environment. However, too frequently students must be satisfied with learning about theoretical models without seeing those models applied to real problems. Also, many theoretical models gloss over some practical issues having to do with the control environment. This project not only exposes students to state-of-the-art software development tools for real-time systems control, but it also provides them with a flexible physical test-bed for their programs. This award is being matched by an equal sum from the grantee.